United States Representation to IFMBE

9526255 Jaron The International Federation of Medical and Biological Engineering (IFMBE) has the aims of encouraging research and the application of knowledge, the dissemination of information, and the promotion of collaboration between engineers, scientists and educators within the medical and biological engineering community. The IFMBE Administrative Council meets twice each year to oversee the management of the IFMBE, to develop projects such as a new journal in Tissue and Cellular Engineering, a dictionary of Biomedical Engineering and the planning of specialized international technical conferences. This project provides partial support of the United States representation to the Administrative Council of the IFMBE to attend its semi-annual meetings over a period of three years: 1995 (Israel), 1996 (Finland and Holland), and 1997 (Hong Kong and Nice). United States representation to the Administrative Council of the IFMBE is under the aegis of the American Institute for Medical and Biological Engineering (AIMBE). The principal investigator for the project, Dr. Dov Jaron, a member of the Board of Directors of AIMBE, represents the U.S. on the Council. Representation on the Council provides the United States with the opportunity to develop new lines of communications and collaborative projects among biomedical engineering researchers from many countries and thereby to extend its leadership role in medical technology research and development. This is particularly so in the newer areas of investigation in cost-reducing and cost-effective health care technologies. Information about Council deliberations is to be disseminated by AIMBE to a wide audience through special articles in various technical publications, specialized workshops and seminars, and electronically on the Internet. ***